CRI: Infrastructure acquisition for sub-100 nano VLSI research

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Infrastructure acquisition for sub-100 nano VLSI research
Proposal: CNS 0551621
PI: Bhanja, Sanjukta
Institution: University of South Florida

With increased scaling down of VLSI circuits, into the nano-scale range, the challenges of design of VLSI circuits has grown significantly. This project will acquire computational, storage and software resources to enable the investigators to design tools to handle very large circuits and to perform multi-objective, multi-level designs, to balance across requirements of power, error, and thermal issues. These advanced computational resources will enable the team to explore probabilistic modeling of nano-domain circuits for millions of gates, design and synthesis of large structural descriptions of circuits, stimulus-free model checking for verification of large designs, algorithmic issues in neural network based video coding, analog characterization, and device performance simulation. Broader impacts of the project will include direct training of graduate students and dissemination of tools for synthesis and probabilistic modeling.